Schubert varieties: Combinatorics, Computation and Geometry

The proposers will collaborate on a suite of main projects in the
combinatorics, geometry, and topology of Grassmannians, flag manifolds,
and their Schubert varieties. These varieties are central to questions
spanning many areas of classical mathematics, such as algebraic topology,
enumerative geometry, and representation theory. They hope to resolve some
thorny questions about classification of singularities and topology of
Schubert varieties, e.g. the 30-year old problem of the
fixed-point-property for Grassmannians. They also propose several
additional projects, continuing some of the PI and co-PI's past work in
algebraic combinatorics. These projects relate to the recently discovered
"cyclic sieving phenomenon", to alternating subgroups of Coxeter groups,
and to critical groups of graphs. Some of these projects are outgrowths
of the PI's past (NSF-funded) REU's.

The appeal of this work is that counting problems, one of the staples of
the field of combinatorics, which seem unrelated to algebra or geometry
sometimes find the key to their solution and/or application in these other
areas. This has been particularly true for the algebraic/geometric objects
in this proposal: the Schubert varieties in flag manifolds and
Grassmannians. These objects are the key to understanding how lines and
planes can tilt and intersect at different angles in the two-dimensional
plane, in three-dimensional space, and in higher dimensions.